Science Partners in Inquiry-based Collaborative Education II (SPICE II)

This proposal describes a Track 2 project developed by The University of Florida in collaboration with Middle Schools from the Alachua County Public School. The main focus of this proposal is to use the ecosystem health theme to strengthen STEM instruction in these schools, while at the same time improving pedagogic and communication skills of graduate Fellows. An additional component of the Track 2 proposal is the plan for institutionalizing their project.